RI-Small: Probabilistic Models for Structure Discovery in Text

This project advances learning methods for obtaining linguistic knowledge from raw or nearly raw text; such knowledge constitutes a core component of natural language processing technology but is difficult to obtain, usually relying on expensive manual annotation of text data. Specifically, this project aims to automate some of the mechanical aspects of developing learning algorithms for linguistic structure (in part by using a empirical Bayesian framework to unify considerable past work by the PI and others), to enrich models with richer linguistic bias (particularly through lexicalization and integration of morphology and syntax), and to apply these techniques to new natural language processing problems (identifying boilerplate and quotation extraction). Another exciting dimension is learning from text collections in multiple languages (not necessarily including translations), which past work has shown can lead to better unsupervised learning. The project will lead to working systems, including generic tools applicable to many problems in natural language processing and machine learning. These tools will provide infrastructure for the PI's courses and will be publicly available to the research community. Research results will be published in leading journals and at major conferences. The project supports one primary graduate student and a post-doctoral researcher. Major impacts of this project will be improvements in the quality of rapidly ported natural language processing tools for new languages and text domains, as well as a deeper scientific understanding of natural language learning by machines.